CAREER: Algorithmic Methods for Large Scale Genome Analysis

Abstract:
With the virtual completion of the human DNA sequence
research attention has shifted to issues including the resolution of the
genetic composition, evolutionary history, and health impact of portions
of the human genome which have proven difficult
to sequence due to their duplicative and dynamic nature.
The proposed research aims to address these problems through
the development of algorithms and software tools for
discovery, resolution and evolutionary analysis of genomic
duplications and other genome-wide segmental
rearrangements.
The ultimate goal is to help understand mechanisms for
and the sources of genetic disposition to
genome-wide structural rearrangements.
Some of these structural rearrangements are known to cause dosage
imbalance
of developmentally important genes during recombination events; as a
result, genomic diseases, including several birth defects as well as
a number of adult diseases occur at a rate of $\~1$ in every $1000$
births.
The premise of this research is that understanding the mechanisms
under such segmental rearrangements may help improve methods
for diagnosis, treatment and prevention of these genetic disorders.

The basic research components of the proposal
are (1) identification of all chromosomal segments that are
duplicated along the genome,
(2) understanding the complex evolutionary relationships between
these interesting segments through novel phylogenetic analysis
algorithms for a single genome sequence, and
(3) identification of the duplication
order via known or derived properties of duplication mechanisms, and
(4) development of similarity measures between genome sequences
that involve not only point mutations but structural rearrangements,
particularly duplications.
The short-term education goal of the proposal is to establish the
algorithmic and the fundamental software development component of
an interdisciplinary bioinformatics program at CWRU, that will provide
means
of awarding M.S. and Ph.D. degrees within existing departmental
degree-granting programs.
The long-term goal is to establish a free-standing
graduate program in computational genomics,
offering a wide-range of introductory and advanced level courses in
bioinformatics.
To this end the investigator has developed and taught a new
introductory graduate course on algorithmic issues in bioinformatics,
with the involvement of students from both the Computer Science
program and the School of Medicine at CWRU.
Funds from this proposal will be used to enhance this activity
through the development of a new advanced level graduate course
in computational genomics for in-depth training on
individualized research topics, as well as an intensive summer research
and training program for graduate and undergraduate students.